Analysis of Microbial Community Structure and Function Alonga Detrital Particle Size Gradient

In most streams, community production is sustained by the decomposition of imported plant litter. The early stages of plant litter decomposition have received much study; but little work has focused on the fate of fine organic particles (FPOM), the form in which most particulate detritus moves through stream ecosystems. Utilizing recently developed biochemical techniques, I propose to investigate the structure and activity of FPOM- associated microbial communities in two concurrent field experiments. The first is intended to evaluate a series of basic hypotheses about microbial production, extracellular enzyme activity and community structure over a broad range of conditions. The second is focused specifically on the relationship between FPOM degradation rates and the activity of lignocellulose-degrading enzymes. %%% This work will contribute to our basic understanding of the operation of attached microbial communities, a topic of broad interest. In addition, it may lead to the formulation of models that relate FPOM mass loss, currently difficult to determine in situ, to the activity of lignocellulose-degrading enzymes, a readily quantified measure. Such a model would permit routine monitoring of FPOM degradation rates, an application that could contribute to future studies of ecosystem processes and management.